Development of a Marine Biochemistry and Molecular Biology Facility

Dr. Kenneth Tenore is the Director of the Chesapeake Biological Laboratory, which is one of three campuses of the University of Maryland's Center for Environmental and Estuarine Research. The Lab is located along the western shore of the Chesapeake at the mouth of the Patuxent River, and the facility is used by resident and visiting scientists for research in ecology, environmental chemistry, the biology and geochemistry of estuarine sediments, and fisheries biology. Dr. Tenore proposes to establish a new facility at the Lab for research that employs techniques from molecular biology, biochemistry, and biotechnology. The new facility will allow researchers to prepare and store samples for analysis, culture cells in the laboratory, and perform a variety of molecular and biochemical analyses. Making these new techniques available to investigators at the Lab will significantly enhance a substantial number of environmental research projects.